Intelligent Soil Exploration System

The primary objective of this study is to develop an optimal, recursive strategy to predict new soil sampling based on successive past observations and to identify the random field parameters necessary for probabilistic foundation design at the site. The research will develop computer software and optimal sampling strategies that will prove useful in soil exploration.